A Mass Spectrometer for Undergraduate Instruction and Research

The goal of this project is the improvement of facilities for analyzing compounds and mixtures in the chemistry department. The improvement is occurring in conjunction with changes in the chemistry curriculum that expose chemistry students to modern instrumental techniques and real-world problems much earlier in their college experience. A mass-selective detector for the department's capillary gas chromatograph is being used for demonstrations at the freshman level to generate student interest in chemistry. In later organic and analytical chemistry courses, students are using the GC-MS to solve increasingly challenging problems. Seniors in these fields of chemistry, as well as the departments of environmental science and biology, are using the GC-MS to perform original research as part of the required, year- long senior research project. With the availability of the GC- MS, seniors are tackling a wider range of research problems, and their results are more accurate and meaningful. The institution has contributed to this project in an amount equal to the NSF funds.